Engineering Research Equipment Grant: Digital Signal Processing

A digital signal processing laboratory equipment configuration will be provided for researchers at Purdue University for research in the Department of Electrical Engineering. This equipment is provided under the Instrumentation Grants for Research in Computer and Information Science and Engineering program. The research for which the equipment is to be used will be in the areas of speech processing research, signal representations, design of specialized signals and nonlinear digital signal processing.